Molecular Biology of Haustorial Development in Striga asiatica

Striga asiatica (witchweed) is a major parasite on corn, Sorghum, millet and rice. This parasitic angiosperm attaches to the host root and invades the host vascular system through a specialized organ termed a haustorium. The development of this unique structure by the parasite is initiated in response to a specific chemical signal from the host. An inducer of Striga haustorial development has been isolated from Sorghum and identified as 2,6- dimethoxy-p-benzoquinone (2,6-DMBQ). Dr. Timko proposes to examine the biochemical and molecular genetic mechanisms involved in haustorial induction and development. Using a combination of in vivo and in vitro approaches he has begun to define the changes in the transcriptional and translational activities of Striga radicles following induction of haustorial formation by 2,6-DMBQ. He will construct cDNA libraries from poly(A)+ RNA isolated from uninduced radicles, induced radicles, and mature haustoria. By differential screening procedures he will identify differentially expressed gene products. These cDNAs will be structurally characterized and the nature of their biochemical factors affecting the development of attachment competency and intrusive growth on host plants. These studies will provide the basis for the future stages of its development. %%% The Striga-host interaction offers an unique opportunity to study the molecular control of plant developmental processes as well as the molecular aspects of plant-pathogen interactions. An understanding of the early events of Striga-host interactions can lead to the development of control methods for Striga and other root parasites.